PC-Based Data Acquisition, Analysis, and Process Control In Engineering Technology

The purpose of this project is to introduce modern instruments and technology into the Engineering Technology curriculum and to allow development of new ways of using modern instruments to provide improved instructional capabilities. The data- acquisition systems consist of an AT-class computer and associated boards and software. External assemblies containing conditioning and protection devices are accessible for student experimentation. The equipment is used in the computer/electronic labs and the mechanical engineering technology laboratories. The electronic/computer engineering technology students learn how to select and install data acquisition systems, how to program them at all levels, how to reduce and analyze data obtained, and how to interface external devices of all kinds. The mechanical engineering technology students use the equipment to perform measurements and for data analysis and reduction, which can be done at a much higher level of sophistication utilizing the available software.